RUI: Nucleon Tomography in Quantum Chromodynamics

The visible universe is composed of protons and neutrons, yet many fundamental questions remain about how their constituent quarks and gluons generate the observable properties of matter, including mass, spin, and internal structure. This project advances the emerging field of nucleon tomography, which seeks to create three-dimensional images of the proton and reveal how its constituents move and interact. Addressing this challenge requires extracting patterns from vast and complex experimental data sets collected at leading research facilities around the world. Artificial intelligence and machine learning provide powerful new capabilities for uncovering these patterns and accelerating scientific discovery. By combining advances in nuclear physics with modern artificial intelligence, this research deepens understanding of the fundamental building blocks of matter while establishing new approaches for integrating data-driven methods in nuclear physics. The project contributes to workforce development by training undergraduate students in physics, data science, and artificial intelligence; supports community-building through international scientific collaborations and workshops; and broadens participation in science through education and outreach activities. The methods developed in this research, including physics-informed neural networks and image-based reconstruction techniques, have potential applications in other areas of science and engineering that rely on extracting information from large data sets.

This project investigates the three-dimensional momentum and spin structure of the nucleon within Quantum Chromodynamics, the fundamental theory describing quarks and gluons and their interactions. The research combines theoretical studies of Quantum Chromodynamics factorization with global analyses of experimental measurements from Jefferson Lab, Fermilab, the Large Hadron Collider, RHIC, and electron-positron colliders to determine transverse-momentum-dependent parton distribution and fragmentation functions. These functions encode the three-dimensional motion and spin correlations of quarks and gluons inside the nucleon. Artificial intelligence methods, including physics-informed neural networks, are integrated with established theoretical frameworks to extract nucleon structure from diverse experimental data while incorporating known physical constraints directly into the learning process. The project develops machine-learning approaches for uncertainty quantification, high-precision global analyses, and pixel-level nucleon tomography, producing detailed images of the nucleon's internal structure. The research also investigates the spin structure of the nucleon through studies of polarized distributions and fragmentation functions, including Sivers, transversity, and Collins functions. The resulting theoretical calculations, phenomenological analyses, and predictions support ongoing experiments at Jefferson Lab and future measurements at the Electron-Ion Collider while advancing the integration of artificial intelligence with nuclear science.